Routability-Driven Logic Partitioning for Multiple-FPGA Systems

Schlag This research addresses the problem of multi-way partitioning of large designs onto multiple FPGA systems. The task is challenging because the partitioning methods must accurately assess and enhance routing so that the partitions can be successfully implemented on individual FPGAs. Existing methods result in poor device utilization because they rely on very conservative rules-of-thumb to ensure the successful place- and-route of individual FPGAs. This work has the following specific goals: 1. to develop new methods for assessing the intrinsic routing requirements of system designs with respect to the architectural resources of FPGAs; 2. to develop effective methods for exercising the tradeoff between logic and routing resources in heterogeneous FPGA architectures; and 3. to incorporate these advances within an integrated routability-driven multi-way partitioning and technology mapping strategy that will allow effective utilization of the reconfigurable hardware resource. In addition to new techniques for routability analysis, partitioning and technology mapping, the research develops new insights into the synergy between system-level interconnect architecture, FPGA device architecture, routability, and partitioning.